Modelling the Laser-Heated Diamond Anvil Cell

Manga 9627835 Quantitative values for properties of geological materials at high pressure and temperature, such as those obtained in the diamond anvil cell (DAC), are essential for understanding the present state and the past evolution of the Earth. The PI proposes to develop a set of 1- and 3-dimensional models of the temperature distribution in the DAC for a range of experimental configurations. Results obtained from the combination of experimental data with theoretical analyses will be applied to the Earth, and implications for the composition and thermal structure of the mantle and core will be studied.